"Collaborative Research: FRG: Automorphic Forms, Galois Representations, and Special Values of L-functions"

Number theory has seen many significant advances in the past few years.
Results from arithmetic geometry and the theories of modular forms and
Galois representations have yielded a proof Fermat's Last Theorem and
fundamental advances towards the $p$-adic Birch-Swinnerton-Dyer
Conjecture (BSD), to name two. The research proposed in this project aims to
continue this progress. The PI's propose to investigate many aspects of the
connections between automorphic forms, Galois representations, and
values of their $L$-functions, with the particular aim of making advances
towards BSD, Bloch-Kato conjectures, and the Iwasawa Theory of automorphic
Galois representations, as well as answering fundamental questions about the
Galois representations associated to automorphic forms. Their project
focuses on $p$-adic methods in the theory of automorphic forms and
Galois representations. By combining their various expertise, they propose to
consider a number of specific problems that fall under the following
headings: $p$-adic Eisenstein measures and their specializations,
Iwasawa's $\mu$-invariants, Non-vanishing modulo $p$ of $L$-values,
Eisenstein ideals for unitary groups, Geometric construction of $p$-adic
automorphic forms, $p$-adic construction of Euler systems, Endoscopic
congruences, Galois representations and Shimura varieties.

This project will enhance our knowledge of the deep links between
automorphic forms, Galois representations, and their $L$-functions - a
central focus of number theory - as well as have significant
consequences for our understanding of mathematics in general. Two workshops, a final
conference, and graduate and post-doctoral advising will have an
important impact on the formation of new researchers in the field and on
the promotion of new collaborations.